Multivariate Analysis, Ranks, and Multivariate Ranks

The project explores two areas that utilize ranked data. The first aims to
develop statistical procedures that are robust to violations of assumptions
while still working close to optimally when the assumption holds. There is
a long history of such robust procedures based on ranking the data, that
is, replacing the observed values in the data with the values' ranks. This
process helps to ameliorate the effects of unusually wild observations that
can ruin an analysis. A number of multivariate situations in which there
has previously been little work using rank procedures will be the main
focus of this project. These include certain structural models defining the
relationship of variables, testing for runs in multivariate data observed
over time, estimating variances and covariances, and testing whether
certain variables are conditionally independent given some other variables.
A proposed method for defining multivariate ranks ("iterated ranks") so
that their distribution is independent of the distribution of the
underlying observations will be explored.

The second area looks at modeling rank data directly, where the data arise
from judges ranking particular objects based on their preferences. One
popular model posits that judges and objects can be arrayed along a line,
where a judge is located nearest the judge's most preferred object, next
closest to the second most preferred object, etc. A new model that also
allows judges to locate themselves nearest the objects they prefer least
will be considered. An extension of these models in which there is
provision for a small percentage of judges to act not at all according to
the model will also be considered.